Conference: Workshop on Future Scientific Instruments for Alloys, Amorphous, and Composite Materials Research

With support from the Division of Materials Research (DMR), three workshops that support Materials Genome Initiative and evaluate instrumentation and infrastructure needs across the materials development continuum are organized. This workshop focuses on alloys, alloys, amorphous materials, and composites. It addresses fundamental science roadblocks and articulates a vision and community-centered roadmap for realizing a bold new vision for laboratories of the future. The workshop engages diverse groups of researchers from the academic, industrial, and governmental sectors. The workshop outcomes will be published openly.

The workshop emphasizes distinctive challenges and unique opportunities regarding research instrumentation and infrastructure for research on alloys, amorphous materials, and composites. It also discusses commonalities with other materials systems. It articulates a vision for materials laboratories of the future, identifies research needs and technical bottlenecks, examines barriers to access, and develops actionable plans for democratic and inclusive access to transformative modeling, processing/synthesis, and measurement toolsets. The workshop is designed to establish the foundations for community-driven roadmap for instrumentation, infrastructure, data, and software, as well as the related workforce development.